Groups: representations and presentations

Groups are basic objects in mathematics - expressing symmetries of
various objects. The groups themselves can be described by generators
and relations - so called "presentations of groups". Given a group, one
may want to understand its "representation" i.e. the way to present
the group as a group of matrices over the field of complex numbers.
The proposed research will focus on quantitative questions of both
aspects: How e±ciently can a group be presented? How many genera-
tors and relations are needed and what is their length? The motivation
for these questions comes from computational group theory: an efficient
presentation is important for efficient computation.
The quantitative aspects of representation theory deal with questions
of the form: What is the rate of growth of the number of representations
as a function of the dimension? It is an elaboration of the theory of
subgroup growth which deals with permutational representations.
Usually presentations and representations are very much disjoint in
their studies. One of the interesting features of the proposed research
is a connection between the two. If successful, it can shed new light on
the representation theory of the automorphism group of the free group
and of the mapping class groups.